ITR: ZebraNet: Position-aware Power-aware Wireless Computing for Wildlife Tracking

As computer systems become increasingly ubiquitous, computer systems research and design has moved
from being a highly performance-centric process to being one that juggles many design goals and metrics.
Mobile and embedded computing systems must, in addition to providing sufficient performance, be rugged,
reliable, power-efficient, and lightweight. Because of the extreme and multidimensional design constraints they face, they must also be attentive to the specific needs of application domains, so they can be designed to satisfy these needs while still meeting power budgets and weight limits.

The Princeton ZebraNet Project is an inter-disciplinary effort with thrusts in both Biology and Computer
Systems. On the computer systems side, ZebraNet is studying power-aware, position-aware
computing/communication systems. Namely, the ZebraNet project works to develop, evaluate, implement,
and test systems that integrate computing, wireless communication, and non-volatile storage along with
global positioning systems (GPS) and other sensors. On the biology side, the technology enables novel
studies of animal migrations and inter-species interactions. From a computing standpoint, key research
breakthroughs are required in protocol and system design in order to make the system power-efficient and
reliable. From a biology standpoint, the system enables fundamentally new types of biological
observations that allow us to: (i) understand long-range migrations in large mammals, (ii) observe inter-species interactions between carnivores (predators) and ungulates (prey), and (iii) track the behavior of extremely endangered species.

As a computer systems research problem, ZebraNet is compelling because the needs of the biological
researchers are stringent enough to require real breakthroughs in wireless protocols and in low-power
computer systems design and computer systems power management. These breakthroughs can be
leveraged into other (non-wildlife-oriented) fields of research; essentially ZebraNet is a power-aware
wireless ad hoc sensor network, but with more serious bandwidth and computational needs than most prior
sensor networks research problems. As a biology research problem, ZebraNet allows researchers to pose
and to answer important long-standing questions about long-range migration, inter-species interactions, and nocturnal behavior.

Major research activities span a broad range, including:
Modeling long-range animal migrations
Observing inter-species predator-prey interactions
Analyzing the impact of human development on animal behavior
Developing power-aware systems for position-aware computing
Incorporating error resilience and domain-specific performance optimizations into lightweight
wireless protocols
Managing logged sensor data to minimize the number of required uploads from tracking nodes

ZebraNet is engaging in a mix of theoretical research, prototyping, and field experimentation. The project
is not solely about systems-building, but rather mixes theory with practical hands-on evaluations of the
ZebraNet designs. Research is conducted both at Princeton University and at the Mpala Research Centre.
Mpala is a biology field station in central Kenya that Princeton University administers along with the
Kenya Wildlife Service, the National Museums of Kenya, the Mpala Wildlife Foundation, and the
Smithsonian Institution.

Overall, ZebraNet represents a truly interdisciplinary effort bringing together research strengths from
disparate fields over a challenging problem. The potential contribution of the project includes significant
advances in computing technology as well as in our understanding of wildlife migrations. The three main
researchers bring strengths in wildlife biology, power-aware computer systems, and wireless technology.
The interplay between these disciplines fosters creative to the research problems in both arenas.